Development of Ship-Borne Atmosphere-Ocean Ozone Flux Measurements by the Eddy Correlation Technique

Project Title: Development of Ship-Borne Atmosphere-Ocean Ozone Flux Measurements by the Eddy Correlation Technique

The PIs propose to build and deploy a sensitive, fast response ozone analyzer to quantify air-sea ozone fluxes. This experiment will complement established technologies for ECM from a ship platform. In addition to the testing of this new technique, concurrent chemical, physical, and biological ocean water measurements will offer an opportunity to investigate the variations and biological dependencies of ocean ozone fluxes. This research will result in a future program for the study of the magnitude and controls of ozone deposition to oceans and freshwater lakes and will also provide new data for elucidating the formation of secondary volatile organic compounds that are released as a result of reactions between atmospheric oxidants, such as ozone, with the organic microlayer covering the ocean surface. Ozone deposition data will be incorporated in surface-atmosphere gas exchanges models and atmospheric chemistry and transport models for better descriptions and forecasts of global atmospheric composition and climate. This research addresses several research needs identified in the surface ocean lower atmosphere study.